Dissertation Research: Honorifics as an Aspect of Japanese Speech Styles

Japanese has long been known for its elaborate system of honorific affixes which show respect for the person to whom or about whom one is speaking. The researcher will investigate how honorific use varies in response to situational features and whether variation in honorific use correlates with variation in other stylistic markers. Conventional analyses of Western languages have generally treated style as involving variation along a single dimension of formality. It has been assumed that co- occurrence rules exist such that speech which is formal in one dimension (e.g., word order) will be formal in another (e.g., word choice). While Japanese honorifics are clearly related to formality, this investigator hypothesizes that honorifics are unrelated to other markers of formality. Therefore, it is possible that Japanese simultaneously show respect with one stylistic marker while showing intimacy with another. This importantly suggests that formality is not a single dimension, but rather involves several analytically distinct features which influence different levels of the linguistic system.